CAREER: Advancing Experimental Computer Science in Storage Management and Education

This work will advance automatic storage allocation through the use of experimental techniques, and will advance education in experimental computer science. Automatic deallocation of dynamically allocated storage is called "Garbage collection" (GC). GC helps to avoid a variety of common but serious programming errors. Unfortunately, it may adversely affect program performance. Modern collectors probably provide acceptable performance, but there is a lack of experimental evidence to support this claim, hindering the adoption of GC, despite its advantages. The goal of this work is to provide a better understanding of GC performance, both aiding its adoption when performance is adequate, and providing detailed quantitative information about how performance needs to be improved when it is inadequate. In particular, the work will compare the performance of copying and mark-and-sweep collection on modern computer architectures. The focus of the work will be building a GC testbed, which will facilitate the systematic comparative study of a variety of GC techniques. The educational goal is to improve the teaching of experimental computer science. A new course is proposed that will explicitly teach experimental CS. The pedagogiaal approach is the standard one used to teach other experimental sciences, in which well-known experiments are repeated, enabling students to gain hands-on experience with the basic methodologies and techniques.***